Operation of the High Energy Synchrotron Radiation Laboratory (CHESS)

9311772 Batterman The Cornell High Energy Synchrotron Source (CHESS) operated by Cornell University, is a national user facility that provides state of the art high energy X-ray synchrotron radiation to the scientific community. Experimental studies carried out at CHESS impact condensed matter physics, chemistry, materials science and engineering, biology, geology, and other disciplines. CHESS is a user oriented facility which accepts proposals from all qualified investigators on a competitive basis. In addition to providing operating costs, this project supports the development of synchrotron radiation facilities using high photon power levels provided by the Cornell Electron Storage Ring(CESR). At present, more than 500 individuals per year from universities, industries, and national laboratories, conduct research on the 10 experimental stations at CHESS. Some of these stations are equipped with unprecedented fluxes and brightness. The facility development program is directed towards equipping these stations with cutting-edge x-ray optics. ***